Random Holomorphic Sections and Complex Geometry

Abstract:

Bernard Shiffman will continue his research on the statistics of random
polynomials in several complex variables and more generally of random
sections of powers of positive line bundles on compact complex manifolds and
on almost complex symplectic manifolds. He will investigate the "scaling
limit" statistics as the degree of the polynomial or the power of the line
bundle goes to infinity when distances are rescaled so that densities are
normalized. He will study spacing of zeros, hole probabilities, pair
correlations for local maxima, and other topics. He will also study
correlations of critical points of spherical harmonics. In another
direction, he will study the compact singularities of equidimensional
meromorphic mappings into compact complex manifolds. He will also look for
new examples of Kobayashi hyperbolic hypersurfaces in complex projective
3-space. Kobayashi hyperbolic spaces do not carry any entire holomorphic
curves; simple examples are the Cartesian squares of curves of genus greater
than 1 and symmetric squares of generic curves of genus greater than 2. He
will look for low-degree hyperbolic birational images of these surfaces in
complex projective 3-space.

This research project is motivated by a need to understand complex quantum
mechanical systems. Quantum mechanics is the fundamental theory that
describes the behavior of atoms and molecules and their component
particles--protons, neutrons, and electrons. These particles are described
by wave functions, which are solutions of Schrodinger's equation. The zeros
and local maxima of wave functions give important information on states of
atoms and molecules; the zeros are known in quantum chemistry and physics as
nodal lines. The behavior of random polynomials provide an elementary model
similar to complex quantum systems. Polynomials in several variables
correspond to systems with several degrees of freedom, and those polynomials
of high degree correspond to wave functions for highly excited states. The
project includes statistics on symplectic manifolds, which serve as the
mathematical models for the states of quantum systems. Another component of
the research involves understanding the geometry of complex algebraic
manifolds, which play an important role in quantum field theory and provide
models for diverse physical phenomena.